Synthetic Biology Open Language (SBOL) Workshop to be held in Boston, MA in March 2016

Standards for data exchange are critical to the development of any field. They enable researchers and practitioners to exchange information reliably; apply a variety of tools to their problems, and reproduce scientific results. This is a project to support a workshop on this topic in March, 2016 to be held in Boston, Massachusetts. The meeting is organized by the Standards network (SBOL), . The request if for participant costs to enable students and junior scientist to attend the meeting. They will learn valuable lessons in the importance of research and tool standardization and the impact of a community-wide effort. This effort is essential for areas of systems and synthetic biology and translational research to become seamless.

The meetings will specifically explore data exchange standards for biology to enable researchers and practitioners to exchange information reliably, apply a variety of tools to their problems, and reproduce scientific results. The discussion will center, among others, on the systems biology markup language (SBML) for mathematical modeling, the biological pathways exchange language (BioPaX) for describing pathways, the systems biology graphical notation (SBGN) for visual representations, and the synthetic biology open language(SBOL) for describing biological designs. While synthetic biology data exchange has many unique requirements, there are also many overlapping goals such as the need to construct mathematical models, describe pathways, and provide visual representations. Therefore, enabling the sharing of tools and other infrastructure will be generally beneficial. Likewise, other communities will benefit from renewed discussions around data exchange and synthetic biology's unique process of forward engineering living systems.